TC: Small: Collaborative Research: Securing Multilingual Software Systems

Most real software systems consist of modules developed in
multiple programming languages. Different languages differ in their
security assumptions and guarantees. Consequently, even if single
modules are secure in some language model and with respect to some
security policy, there is usually no uniform security guarantee on a
whole multilingual system. This project focuses on low-overhead
techniques for providing security guarantees to software systems in
which type-safe languages such as Java interoperate with native code.
Native code is developed in low-level languages including C, C++, and
assembly languages. Although often used in software projects, native
code is notoriously insecure and is a rich source of security
vulnerabilities. The PIs are developing a two-layered approach to
alleviating security threats posed by native code to type-safe
languages: (1) Binary rewriting tools and their verifiers are being
incorporated into the Java Virtual Machine (JVM) for rewriting and
verifying native modules at the machine-instruction level to enforce
security policies; (2) A safe dialect of C for interoperation with
Java is being designed; with the help of programmer annotations, the
safety of programs in this dialect can be statically verified. The
outcome of this project will enable popular platforms such as the JVM
and .NET and other major programming languages (e.g., Python, OCaml,
etc.) to incorporate native modules safely. The developed principles
will also be applicable to web browsers and operating systems in which
there is a need of extending them with untrusted low-level modules
without comprising host security.